NorthWestNet Linkage

Whitman College is establishing a connection to NSFNET via a 56,000 bits per second line through the NorthWestNet mid-level network. The connection enables the school's faculty and students to communicate and collaborate with the international scientific and educational community to access network resources such as libraries, databases and supercomputers. This award funds part of the costs for two years.